Pan-American Advanced Institutes - PASI: on the Study of Surfaces, Interfaces and Catalysis, Merida, Venezuela, March 29 - April 06, 2003

0217420
Zaera

This Pan-American Advanced Studies Institute (PASI) will support Dr. Francisco Zaera of the University of California, Riverside in coordination with Dr. Francisco Machado of the Central University of Venezuela and Dr. Alfonso Loaiza of the University of the Andes in Merida, Venezuela. The main objectives of this PASI are to familiarize advanced graduate students, post-doctoral and junior scientists from the Americas on recent advances in surface science and catalysis as well as foster new inter-American research collaborations. The program will formally introduce beginning scientists to modern experimental techniques in surface science and to the latest theoretical methods used to study surface chemical phenomena. The proposed activity will be followed by a Symposium that will bring together research groups from Latin America and the United States to discuss the latest results in surface science and catalysis.